Metal-Metal Multiple Bonded Complexes with Modular Redox-Active Ligands

Dr. Scott R. Daly and Dr. Bess Vlaisavljevich of the University of Iowa will develop new chemicals to improve energy storage devices called flow batteries. These batteries rely on solutions of electroactive chemicals that can be charged during periods of high energy production and then discharged when energy is needed. The biggest advantage is their scalability and simplicity: flow battery solutions can be stored in tanks and deployed on demand like more conventional liquid fuels. Yet, advancing the broader use of flow batteries requires the development of cheaper, more energy dense electroactive materials than are currently available. The goal of this project is to determine how electroactive molecules containing metal-metal bonds can be used to increase the amount of energy stored in flow battery solutions. New chemicals will be prepared and tested with relatively inexpensive, earth-abundant metals to investigate how chemical and structural modifications affect their electrochemical storage density, stability, and solubility in flow battery solvents. Realized enhancements have the potential to benefit society by providing access to improved battery materials required to deliver cheaper and more reliable electricity to businesses and general public. Dr. Daly and Dr. Vlaisavljevich will use their unique positions as military veterans and chemistry faculty to hold the first Student Veterans Research Conference in collaboration with the Iowa Veteran Education, Transition, and Support team and student-led Veterans Association at Iowa. The goal of this outreach initiative is to provide support and promote student veterans and military affiliates in academic research.

The transformative concept that defines this project is the synthesis of metal-metal bonded complexes with highly modular redox-active ligands. Complexes of this type have not been vigorously considered for flow batteries, yet they have desirable characteristics. Multiple electron equivalents can be stored in both the metal-metal bonds and redox-active ligands for reversible charging and discharging. A challenge limiting the development of metal-metal bonded complexes for flow battery applications is the lack of ligand platforms that can be modified easily to enhance desirable redox properties, complex stability, and solubility. To address this challenge, metal-metal bonded complexes will be prepared with redox-active tetradentate ligands that are highly amenable to stepwise modifications using large libraries of commercially available starting materials. The synergistic experimental work by Dr. Daly and computational work by Dr. Vlaisavljevich will provide a framework to achieve more reliable assessments of ligand design characteristics that improve redox properties and molecular stability during redox cycling. The long-term goal is to use experimental data to continuously incorporate new benchmarks to improve the modeling’s predictive capabilities and identify promising synthetic targets for flow battery applications.